A CAD Expert System for Structural Design of Repairs

The objective of this proposed research is to develop a CAD-Based expert system for the design of structural repairs and for the detailed design of structural members. The system will couple variational geometry, automated finite element mesh generation and design sensitivity analysis into a tool capable of providing feedback on the effects of "what if" changes and of also determining, via a gradient descent search strategy, the optimum shape for the repair concept under consideration.